Development of a Project Based Laboratory Sequence In Molecular Biology And Chemistry

Development of a Project Based Laboratory Sequence in Molecular Biology and Biochemistry A project based laboratory curriculum in Molecular Biology and Biochemistry is being implemented. The new curriculum offers students a coherent, project oriented laboratory experience that allows them to participate in the selection and design of experiments. The laboratory curriculum is engaging students in the scientific process and thereby is facilitating the development of the reflective judgment and problem solving skills relied upon by scientists. The students are being acquainted with the techniques of molecular biology and biochemistry most commonly used to address research questions. In the Molecular Biology course, both molecular cloning and polymerase chain reaction techniques are being introduced, and students then are applying these techniques, using the DNA thermocycler, and exploring a question of interest. In the Biochemistry course, protein purification is being approached by using recombinant DNA technology rather than by relying upon classical tools. The Biochemistry course also is using high performance liquid chromatography to effect difficult separations of biomolecules.